Applications of Moduli Spaces of Maps of Nodal Curves

deJong/Vakil
9970101
The investigator proposes to use Maxim Kontsevich's space of "stable maps"
(originally motivated by mathematical physics earlier this decade) to
tackle problems in a variety of fields. Applications include
explaining the conjectured presence of modular forms in the enumerative
geometry of curves on surfaces, understanding various combinatorial
problems (relating to the geometry of ramified covers of the sphere),
generalizing stable maps to positive characteristic, algebraically
understanding the original motivation for stable maps ("Gromov-Witten
invariants") in a "relative" case, and using stable maps to understand the
moduli space of pointed curves.

This proposal concerns algebraic geometry, an area of mathematics
studying geometric objects defined by polynomial equations. It has long
been known that nodal algebraic curves are a powerful tool in algebraic
geometry. These curves can be thought of as surfaces with holes with
pairs of points "glued together". Earlier this decade, ideas from theoretical
physics led to the introduction of "stable maps", parametrizing certain kinds
of maps of nodal curves into another space. This development has proved
to be very fruitful, sparking advances in a variety of fields. The investigator's
area of research is the use of families of nodal algebraic curves in
algebraic geometry, in particular with applications to other fields such
as enumerative geometry, arithmetic geometry, combinatorics, and
mathematical physics.